Structure and Function of a Chloroplast Processing Enzyme

9407739 Lamppa Most of the proteins of the chloroplast are encoded by the nuclear genome, synthesized as precursor polypeptides in the cytoplasm and subsequently imported into the organelle. Although an outline of the pathway of protein import is known, the mechanism underlying each step is not well- understood. The long term goal of this project is to elucidate at the molecular level the components involved in individual steps of the pathway and how they function. The project focuses on the proteolytic processing enzyme that is responsible for precursor maturation. Processing enzymes play a critical role in organelle biogenesis; they are responsible for the proteolytic removal of the N-terminal transit peptide from the precursor, releasing the mature protein. In peas, two proteins of 145 and 143 kD co-purify with an activity that cleaves the precursor for the major light-harvesting chlorophyll protein (LHCP). The processing enzyme appears to be responsible for the maturation of other proteins as well, including the small subunit of Rubisco and the acyl carrier protein. Using antibodies raised against the 145/143 kD proteins, genes will be isolated by immunoscreening a cDNA expression library in order to determine the primary sturcture of the chloroplast processing enzyme (CPE), both in peas and in the model plant Arabidopsis. CPE will be synthesized in E. coli, and isolated under conditions to recover an active enzyme, or synthesized in vitro. The mechanism of precursor recognition and cleavage will be investigated by in vitro binding assays and mutational analyses. Peptides corresponding to regions of the transit peptide will be employed in in vitro competition experiments to determine if they inhibit processing. The pattern of expression of CPE during development and in response to light will be explored at the transcript, protein, and enzymatic activity levels in Arabidopsis. This analysis will reveal the importance of CPE in different organs , and provide information on how its synthesis is regulated. CPE activity will be downregulated in Arabidopsis using antisense genes to assess if CPE is indeed a general processing enzyme utilized for the maturation of a diversity of proteins, and thus a key component of the import machinery. It will be established how far organelle biogenesis proceeds in the absence of normal levels of CPE and protein complexes that depend on this enzyme for their assembly. Biochemical and morphological studies will be performed to monitor changes in plant phenotype. %%% The chloroplast is the plant organelle which is responsible for photosynthesis, the process whereby sunlight is converted to biologically usable chemical energy. The activity of the chloroplast is thus the key biological function underpinning life as we know it on earth. Understanding how the chloroplast works is of major importance to agricultural biotechnology, since such understanding is absolutely prerequisite to any efforts to enhance food production by plants through chloroplast manipulation by bioengineering methodologies. This project addresses how the proteins of the chloroplast, most of which are synthesized in the cytoplasm, get into the chloroplast. It is already well established that the chloroplast protein import process involves a transit peptide extension on the incoming proteins which are required for import, and that the newly-imported proteins lose their transit peptides through the action of a processing protease inside the chloroplast. However, although the general pattern of how proteins get into the chloroplast is understood, very little is yet known about the actual biochemical machinery of the process. The specific focus of this project is the processing protease. A candidate protease has been identified in chloroplasts of pea. This enzyme will be studied using biochemical, cell biological, and genetic approaches, to learn how it functions in terms of its role in protein im port, and also to learn its significance for the biology of whole plants. The biochemical and cell biological approaches will be carried out using pea chloroplasts, and the genetic and whole plant developmental studies will be carried out in the model flowering plant, Arabidopsis. The results of these studies will lead to a greater understanding of both the machinery of chloroplast protein import and the role of that machinery in the development and physiological function of whole plants, and thus will be of great significance to agricultural biotechnology. ***